Least-Squares Finite Element Methods for Nonlinear Partial Differential Equations

The goal of this project is the development and analysis of least-squares
methods for partial differential equations (PDEs) arising from applications
in fluid and solid mechanics. These systems are naturally nonlinear and
numerical simulation is typically difficult and expensive. The
least-squares finite element method is a powerful tool for many PDE-based
applications in science and engineering. One of the main characteristics
of a least-squares formulation is that it transforms a given set of
equations into a loosely coupled system of scalar equations that can be
treated easily by multilevel finite element methods. The finite element
spaces for the individual unknowns may be chosen independently, based on
simplicity and availability or from the physics of the underlying problem.
The linear systems of equations resulting from well-posed least-squares
discretizations are always self-adjoint and positive definite, and
variational multigrid methods generally provide a robust, scalable solver.
In addition, the associated functional itself provides a natural sharp
local error estimator, which can be used for effective adaptive mesh
refinement. Coupling nested iteration and Newton linearization with a
least-squares discretization and multigrid iterative solver constitutes a
robust, comprehensive solution strategy for difficult nonlinear problems.

This project represents a focused study of least-squares methods for
several linear and nonlinear elasticity and fluid flow problems, extending
to applications in viscoelasticity. Some research in these areas has been
successful and preliminary results are encouraging, but much remains to be
done. This project includes both general solution methodologies for
problems with strong nonlinearities and specific least-squares formulations
for models that have not been analyzed in a least-squares framework. The
applications considered in this project include complex and specialized
systems important in areas including engineering, physics, aerodynamics,
atmospheric sciences, geology, and biomechanics. One target application,
for example, is a specific incompressible, non-Newtonain flow which arises
in the modeling of blood flow. Here, a viscoelastic model that takes into
account the elastic nature of the suspended red blood cells is to be
considered. In these and many other areas of interest, computer simulation
of complex phenomena are currently limited by efficiency of numerical
methods. The basic techniques developed here will enhance the broader area
of scientific computation by adding to the collective understanding of how
to analyze and solve complex problems.